Technician for the Mineral and Rock Physics Laboratory, University of Minnesota

9526239 Karato This grant provides $120,000 as three years partial salary support of a laboratory technician for the Mineral and Rock Physics Laboratory at the University of Minnesota. The technician will be responsible for the maintenance, operation and support of multiple low and high pressure apparati used in laboratory experiments to study aspects of mantle rheology and seismic attenuation in mantle rocks. ***